Presidential Young Investigator Award: Fundamental Studies of Surface Electrochemistry

Research in surface electrochemistry will be conducted. This will include studies of the liquid-solid interface, and adsorption, desorption and chemical reaction on electrode surfaces. A substantial portion of this award will be used to purchase an ultra-high vacuum system for surface science measurements.